Investigations of Lepton Interactions

This research focuses on new and continuing experimental tests of quantum electrodynamics and relativistic bound-state formalism in positronium. Two systematic tests at the 200 ppm level will be made to address differences between the current value obtained by this group and the theoretical value. High precision spectroscopy of positronium in excited states will be continued with measurement of the n=2 fine structure intervals.